Buckminsterfullerene-Ion Assisted Deposition of Thin Films

An SGER award will permit testing the feasibility of using buckminsterfullerene (C60 and C70) ions in ion-assisted deposition of MgF2 antireflection optical coatings at relatively low temperatures. It is anticipated that these ions may provide suitable energy transfer to the optical films to force dense growth - resulting in optimal wear and optical properties - at temperatures at which plastic optical components are stable. It is also expected that the buckminsterfullerene ions will leave minimal chemical residue and mechanical damage in the film.